CAU Computing Science Research Laboratory (CSRL)

This grant provides infrastructure support for the development of the research and educational activities of the Computing Science Research Laboratory (CSRL) at Clark Atlanta University. The support includes computing equipment and software, graduate student assistantships, faculty release time, and the NSFnet connection. The principal investigators will conduct research in (1) software reuse, (2) interactive multimedia systems, (3) object-oriented databases, (4) parallel algorithms for network dynamic programming, (5) neural network implementations, and (6) parallel algorithms for roots of polynomials. The educational component of this project blends undergraduate and graduate research experiences at CSRL with an existing educational program funded through ONR which exploits linkages with local universities, industry, and national laboratories.//